Request for Joint Sponsorship of a MSA-GS Workshop on 'Thermochronology' - October 2005

A workshop entitled "Thermochronology" is being held in Snowbird, Utah in October of 2005. Workshop participants are: The two primary aims of this workshop are the (1) assessment of the state of the art of thermochronology and the identification of future potential and outstanding problems in the field, and (2) education of students and early career scientists in methods, concepts, and applications of thermochronology. Participants are attending lectures by leading experts in the field, extended discussion sections, and hands-on computer software training sessions. Workshop participants include graduate students, early career scientists, and scientists from underrepresented groups in the geosciences. Workshop results will be disseminated broadly through publication of a special volume by the Mineralogical Society of America.